Protein Sequence Instrumentation

This application requests funds to support the purchase of instrumentation capable of carrying out protein and peptide sequencing. This will be part of a multiuser, multidisciplinary molecular biology facility. Eight core users with federal grant support will benefit. Research projects housed in different academic divisions of the School of Basic Life Sciences with the availability of this instrumentation will study: 1. Molecular structure and function of proteins in solution and in membranes; 2. Proteoglycan turnover in bone forming cells; 3. Intracellular protein traffic and protein engineering; 4. Regulation of expression of heart acetylcholinesterase; 7. Mechanism of acylation in membrane phospholipids; 8. Protein-DNA interaction in viruses. All projects depend upon the availability of this instrumentation capable of rapidly and reliably sequencing small amount of peptides.